Implementation of A Modern Data Acquisition System.

This project supports development of a microprocessor-based and computer-interfaced data acquisition system for the undergraduate Mechanical Engineering laboratory. In addition to data generated in the laboratory, the students will also have the capability to acquire real world data through remote sensing. Sensors are installed in the field for the measurement of temperatures, pressures, flows, volt- amperes, strains, and mechanical vibrations on a mechanical system. The signals from the sensors are transmitted to the data acquisition laboratory via telephone lines. This provides the students opportunities for "hands on" experience with telecommunications in the acquisition, storage, retrieval, and analysis of data. Implementation of the undergraduate instrumentation laboratory at this institution enables the faculty to respond to the revolutionary effects of digital technology in mechanical engineering education. This award is being matched by an equal sum from the grantee.